New Synthetic Organometallic Chemistry

The proposed research involves the development of new synthetic methods involving organocopper intermediates used at catalytic concentrations. Reactions will include 1) Fleming's silyl cuprate chemistry, 2)the use of lanthanide and other rare earth cocatalysts, 3) alkylations of functionalized Zn and Zr reagents with vinyl and aryl triflates, and 4)1,4-reductions of alpha,beta-unsaturated carbonyl compounds using copper hydride complexes. Raman and IR spectroscopy, and electrospray mass spectrometry, will be used to determine organocuprate compositions and structures in solution. With this renewal award, the Organic and Macromolecular Chemistry Program provides continuing support for the research of Dr. Bruce Lipshutz of the Department of Chemistry at the University of California at Santa Barbara. The research involves the developmentof synthetic methods for preparing organic compounds under mild conditions and with high selectivities. The work will provide valuable training to graduate students and post-doctoral fellows in organic synthesis and the spectroscopic identification of reaction intermediates.